Fifth World Congress: Habitat and the High Rise: Tradition and Innovation; May 14-19, 1995; Amsterdam, The Netherlands

CMS-9417432 Beedle, Lynn S. Lehigh University This award is to provide partial travel funds for a group of researchers to present technical papers at the Fifth World Congress - Habitat and the High-Rise: Tradition and Innovation. It will be held May 14 - 19, 1995 at Amsterdam, The Netherlands. The meeting will discuss: building systems, concrete and masonry buildings, new concepts, planning, management, safety, deterioration, and related topics.